Flexible Architectural Cores for Commerical Computing Systems: A University-Industry GOALI Collaboration

Commercial computing workloads, such as on-line transaction
processing, file-serving, data mining, and web-serving, currently
represent about 85 percent of the overall market for large computing
systems. Nevertheless, much of the computer architecture research
to date has focused on improving the capability of computer systems
to access, process, and store the large arrays of data common to
numerically-intensive workloads. The implicit assumption has been
that all types of computer systems would benefit from the
architectural innovations developed for these applications. To
address this disparity between the economic importance of commercial
computing systems and the traditional architecture development focus
on technical computing systems, this project is developing the
Flexible Architectural Cores for Commercial Computing Systems
processor architecture. This new architecture is based on the
observation that the constantly changing behavior in a commercial
computing environment causes different architectural innovations to
be applicable during different phases of execution. A unique aspect
of this project that will significantly enhance its relevance to
commercial computing environments is the close collaboration of the
IBM Corporation's commercial microprocessor development group in
Rochester, Minnesota. This project will make substantial
contributions to educational and human resource development through
graduate student research and interaction with industry.